Integrating Digital Audio Technology into the Undergraduate Curriculum

Through the application of digital audio technology, a new microcomputer-based laboratory will expose psychology students and speech pathology and audiology students to the fundamentals of acoustics, sound propagation, distortion, time-domain and frequency-domain representation of sound, sound spectrograms, resonance and the format structure of the human voice, the source-filter theory of speech production, categorical perception of speech and non-speech stimuli, fused and segregated perceptual images, multidimensional scaling, and associated topics. The laboratory will employ an active hands- on approach, so that students will acquire a firm understanding of the relationship between the physical properties of sound and sound production on one hand, and the perceptual consequence of changes in stimulation on the other. Both major- and non-major upper-division undergraduate students will utilize this laboratory .